Adaptive Finite Element Methods for Nonlinear Multiscale Problems

The adequate numerical treatment of nonlinear phenomena
governed by partial differential equations with several disparate
scales is a formidable computational challenge. Modern algorithms
should be able to resolve fine scales for certain physical
quantities without overresolving others, thereby optimizing the
computational effort and making realistic 3d simulations
feasible. Epitaxial and crystal growth in materials science, and
viscous incompressible fluids are typical yet quite distinct
examples addressed in this proposal. The goal of this project is
to design, test, and analyze reliable and efficient adaptive
finite element methods for such problems, with space-time error
control and based on refinement/coarsening mesh modification.
This project blends quite delicate analytical and computational
issues, and applies them to free boundary problems, constrained
problems, geometric PDE and the Navier-Stokes equations of
incompressible fluids.
Scientific computing has joined theory and experiment to
form together the three central aspects of scientific inquiry.
The current strengths in computational mathematics draw on the
widespread acceptance of computational modeling as a complement
to, and even a replacement for, physical tests in a broad number
of fields. In this vein, the investigator develops reliable and
efficient computational tools that may be useful in several areas
of strategic importance such as nanotechnology, materials
science, and high-performance computing. This project is a
collaborative endeavor, involving a number of scientists in the
US and abroad, as well as several students and postdocs. A
substantial effort is devoted to education and human resource
development.